STIR: Socio-Technical Integration Research

Science and technology policies in many nations are placing new pressures on laboratories to address broader societal dimensions of their work in ways that have the potential to influence the content of science and engineering activities. Despite longstanding calls for collaborations between natural and human scientists to achieve this goal, neither the capacity of laboratories to respond to such pressures nor the role that interdisciplinary collaborations may play in enhancing responsiveness is well understood or empirically supported. It is crucial to overcome these limitations in order to design, implement, and assess effective programs aimed at responsible innovation.

This project co-funded by Science, Technology & Society; Biology and Society; Mathematical and Physical Sciences and Society; Science of Science and Innovation Policy; and Office of International Science and Engineering involves a coordinated set of twenty laboratory engagement studies to assess and compare the varying pressures on and capacities for laboratories to integrate broader societal considerations into their work. Ten doctoral students each conduct two paired laboratory studies that extend more traditional ethnographies by engaging researchers in semi-structured interactions designed to enhance reflection upon research decisions in light of broader considerations.

The objectives of the STIR project as a whole, as well as each paired study, are: to identify and compare external expectations and demands for laboratories to engage in responsible innovation; assess and compare the current responsiveness of laboratory practices to these pressures; and investigate and compare how interdisciplinary collaborations may assist in elucidating, enhancing, or stimulating responsiveness.

Students base their studies on a protocol developed by PI Fisher during a previous thirty-three month laboratory engagement study. This study provides preliminary evidence that such activities as proposed here enable laboratory work to become more sensitive to its potential societal implications, without compromising laboratory research, education, or strategic goals. The STIR project investigates whether these results are applicable across a diverse and globally distributed range of labs and in a less time and labor-intensive manner.